A Networked Computing Laboratory Environment for Integrationof the Mathematical and Physical Sciences

An integrated computer-assisted learning environment in being established in the chemistry, mathematics and computer science, and physics departments to encourage development of students' scientific and mathematical modeling skills, and facility for transferring concepts and tools between disciplines. The primary emphasis is on coordinated development of curriculum changes and computer exercises designed to develop student skills in analysis and synthesis of models having multi- disciplinary applications, and with approaches integrating symbolic, graphic, and numeric methods. Derive, Maple and Mathematica are being incorporated into coursework as a common technology base for the sciences. The project employs a wide area network of PC's organized into three laboratories. Working cooperatively on this project, the three departments are developing and implementing the concept of computer-aided integration of the sciences through common abstraction and modeling techniques.